Film Condensation in Porous Media

This research involves a fundamental investigation of heat transfer in porous media. The focus is on phase change processes such as condensation and evaporation. The study has high relevance in engineering technology, since these processes occur in geothermal reservoirs and heat pipes, during thermally enhanced petroleum recovery, ;itin situ;ro processing of oil shale and tar sands, and in underground nuclear waste repositories. In the study, special attention is paid to film condensation in porous media. Since the film is likely to be two-phase, it is necessary to measure both saturation and temperature in the film to develop a better understanding of the transport mechanism.